Potentiometric Sensors and Extradition Media for Carboxylates

This research project, supported by the Analytical and Surface Chemistry Program and the Office of Multidisciplinary Activities, focuses on three areas involving selective extractions and potentiometric sensors based on molecular recognition. Professor Weber and his students at the University Pittsburgh will use a combinatorial approach to find mixtures of medium molecular weight polyfunctional phosphate triesters that selectively extract target analytes. Novel artificial receptors for anionic dicarboxylates will be developed for application in potentiometric sensors and the further development of a capillary electrophoresis device for micro-extraction will be pursued. This work will find use in industrial chemistry, medicine, environmental chemistry, and agricultural and food science. There are few practical sensors for anions which are negatively charged species. The need for such sensors spans applications in many areas of science including the environment, agriculture, medicine, and chemical industry. This project aims to develop several strategies for directly quantifying and for extracting such species from real sample matrices by developing new compounds and mixtures of compounds that selectively bind to anions via molecular recognition. Direct sensors that function by measuring potentials that are related to analyte concentration and extraction procedures that can be implemented for very small sample volumes will be developed.